GRADUATE STUDENT PARTICIPATION IN THE 14TH INTERNATIONAL HEAT TRANSFER CONFERENCE: Aug 8-13, 2009 in Washington, DC

0946620
Kim

This award will provide funds for graduate students to attend the Fourteenth International Heat Transfer Conference in Washington D.C. on August 8-13, 2010. Over 1000 participants are expected to attend, and up to 46 students, who are co-authors of conference papers, will be supported. The financial support will be used to establish a reduced student registration fee at the conference, relative to the regular registration fee.
Intellectual Merit: The International Heat Transfer Conference includes a broad range of topics, from biological heat transfer to turbulence. Emerging areas such as novel energy conversion devices, environmental heat transfer, and nanomaterials will also be included. The co-sponsors of the conference include the American Nuclear Society, the American Institute of Chemical Engineering, the Canadian Society of Mechanical Engineering, and the American Institute of Aeronautics and Astronautics.
Broader Impacts: Active participation of a diverse cadre of students from a variety of backgrounds will be enabled. Students eligible for the reduced registration fee will primarily be co-authors of papers or posters presented at the conference. Students from underrepresented groups will be actively recruited to attend the conference. The venue will provide a unique opportunity for students to interact with researchers from the global heat transfer community.